Finding Aids, Bibliographic References, Expert Training, and Integrated Hyperlinks

The Inter-university Consortium for Political and Social Research (ICPSR) serves the needs of social and behavioral science faculty and students through a variety of means, chief among them today an extremely large and active site on the World Wide Web. This project will enhance user support on the ICPSR Web site in four main ways, employing the best Web software available and newly emerging international standards for best practice in documentation for social science data. The ICPSR end-user support network also will be strengthened.

The project will: (1) improve the tools on the Web site for the discovery of data; (2) substantially extend an existing database of bibliographic references to publications; (3) train an existing network of end-user campus support representatives to assist with hard-to-use data sets; and (4) integrate major data resources outside of ICPSR fully into the searchable ICPSR metadata databases. The result of these four tasks, plus other work done by ICPSR with internal funding, will be substantially improved user support services on what is already one of the most useful and most-used Web sites in the social and behavioral sciences.